SBIR Phase II: Counterflow Supersonic Virtual Impactor for Separating Fine Particles from Gases

9403683 Felder This Phase II SBIR project is for the efficient collection and separation of ultra-fine particles from carrier gas streams. The proposed process should classify and separate these ultra-fine particles by their size. It uses a supersonic jet to carry the particles to a gas counterflow region where the particles separate into a collection region by virtue of their momentum. The proposed method would permit the separation and collection of pure solid particles resulting from combustion or other synthesis methods, including those resulting in high gas temperatures. The commercial applications of this process, if successful, would range from particle collection from combustion synthesis to the replacement of filters, cyclones, or precipitators.